Topics in Algebraic Geometry and Related Areas

DMS-0245528
William E. Fulton

There has been exciting recent work involving interactions among Schubert
calculus (intersection theory on Grassmannians and related flag
varieties), eigenvalue and singular value problems in linear algebra,
representation theory, geometric invariant theory and related symplectic
geometry. In addition to solving the Horn conjecture about eigenvalues of
sums of Hermitian matrices, a variety of related problems have been raised
and are being solved. There are quantum analogues of many of these problems,
which are part of this project. The project also involves a problem of
enumerative geometry, and a more difficult problem of constructing moduli
spaces of subvarieties to resolve away multiple components. Three writing
projects, on stacks, toric varieties, and curves, have each already led to
some new research.

The proposed research concerns nine topics, most on the borders of
algebraic geometry with other areas. Much of algebraic geometry concerns
the geometry of quite general spaces. This research, however,
concentrates on a collection of special varieties which have a rich
structure that one can hope to analyze in detail. These arise in
neighboring areas of mathematics, especially representation theory, but
also linear algebra, combinatorics, commutative algebra, and symplectic
geometry. For example, although the notion of quantum cohomology -- which
came from physics -- make sense in great generality, few spaces have had
their quantum cohomology thoroughly worked out, and we plan to expand this
knowledge in this project. Three book-writing projects are in progress,
two of which should be useful to graduate students in algebraic geometry;
the third is aimed at undergraduate mathematics majors.